Planning Grant for forging a collaborative initiative, "Sciences of Sustainability Through Instructional Technology Transfer

This is a planning project designed to augment the institutional relationship of College of
Menominee Nation, located in Keshena, Wisconsin and Salish Kootenai College, located
in Pablo, Montana around their mutual commitment to promote the sciences in support of
sustainable development. While strong administrative linkages exist between the two
colleges, no such comparable network exists among the faculty of the two institutions.
That faculty linkage is an essential component to the development of our proposed long
term initiative, and we envision a broadly integrated collaboration merging research,
instruction, and extension services as a consequence of this award.